A Unified and Instrumentation Oriented Approach To Undergraduate Training In Physiological Ecology

9451145 Edmunds This project supports an upper division laboratory-based physiological ecology course in the life sciences. Major goals are emphasized, including a unifying of the diversity of organismic adaptations with focus on energy budgets and resource acquisition; the linking between genes, enzymes, proteins, organisms, populations and the environment; providing hypothesis driven laboratory exercises, experimental design and analysis, as well as an introduction to contemporary instrumentation. The project has expanded the laboratory component of the course, is disseminating the results of the program through a laboratory manual, provides pre-service and in-service teacher training workshops, undergraduate research, and local scientific conferences.